Oriental Institute Archaeological and Environmental Investigation of Yemeni Terraced Agriculture

9408714 Gibson With National Science Foundation support, Drs. McGuire Gibson and Tony Wilkinson will conduct archaeological research in the highland region of Yemen. Previous archaeological work has revealed the presence of widespread terraces which date to prehistoric times and served, presumably, for agricultural purposes. However their dates and cultural affiliations are not well known. Drs. Gibson and Wilkinson will use aerial photographs to locate such complexes. They will then conduct on the ground survey and mapping. They will carry out trial excavation to determine the geomorphological characteristics of the terraces, to collect organic material for radiocarbon dating, and to discern cultural affiliation. These data will provide the basis for a larger, more long term research effort. Archaeologists wish to understand how complex civilizations developed from smaller scale social units. Several theories proposed focus on the agricultural process and the need to coordinate large numbers of individuals to achieve common goals. It has been argued that in semiarid environments, such as the Near East, irrigation plays a central role because the construction of irrigation canals requires large amounts of labor and the allocation of water necessitates central hierarchical control. The Yemen situation may be different because preliminary indications suggest that terracing - which is a small scale activity - and increased social complexity seem to go hand in hand. Drs. Gibson and Wilkinson wish to examine this question. This research is important because it will increase our understanding of how humans adapt in semi-arid regions. It will also shed new light on the development of complex societies. ***